Chapman Conference on the North Atlantic Oscillation

Funding is provided to support an AGU Chapman Conference on the North Atlantic Oscillation (NAO). The goal of the conference is to move toward a consensus on the primary process or processes which are responsible for observe low frequency variations in the NAO, including its unprecedented upward trend over the past 30 years and to identify the key remaining issues and future research activities needed to resolve them. Physical oceanographers, meteorologists, climatologists and paleoclimatologists will participate in the conference. The funds requested from NSF will support ravel expenses for graduate students, young scientists and some needy invited speakers and program committee members.